Integration of NMR Spectroscopy Theory and Laboratory Applications in Undergraduate Chemistry Curriculum

Nuclear magnetic resonance spectroscopy is an indispensable source of chemical information. NMR studies provide much of the basis for theoretical concepts of molecular reactivity and architecture that are fundamental in undergraduate chemical education. Direct experience with NMR techniques helps students appreciate the basis of these concepts. NMR techniques are the most versatile of all modern instrumental methods. Because NMR instruments can be used in so many parts of the undergraduate chemistry curriculum, students are aided in the important task of integrating what they learn in different courses. Students graduating in chemistry, whether entering the job market or graduate school, are being significantly improved through the use of the NMR spectrometer. The NMR purchased allows for maximum information output in students' hands without undue diversion of faculty attention from the close individualized relation with students that is the pride of the department. The grantee is matching the award form non-Federal sources.